Supernovae and Supernova Cosmology

This is a three-year award to sustain the Center for Astrophysics Supernova Program, which obtains observations of supernovae in low redshift galaxies using the 1.5 meter, 1.2 meter, and robotic 1.3 meter telescopes at Mount Hopkins Observatory in Arizona as well as the 6.5 meter MMT and Magellan telescopes. It will obtain spectra and multi-color optical light curves for supernovae north of -20º and brighter than 18 mag. This work is aimed at answering questions about supernovae: which stars explode, by what mechanism, and with what result? The work has also been applied to cosmology, providing part of the foundation for the discovery of dark energy.

The broader impacts of this work include training of students and outreach through public lectures